Baltimore City Community College Internet Program

9522297 El-Haggan The Baltimore City Community College requests support from NSF for connection of two college campus networks to SURAnet. SURAnet, a midlevel network will provide operations management and information services and it will give the two campuses access to the Internet, a collection of interoperable networks that connect most research and education organizations in the United States. The campuses need the Internet connections to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of the Baltimore City Community College campuses as well as the community in general.